RAPID: DRL AI: Scaffolding Automated Feedback for Teachers

While Artificial intelligence (AI) has the potential to improve both science, technology, engineering and mathematics (STEM) teaching practice and students' overall classroom experiences, it is critical to better understand how teachers can more easily adapt it within their classrooms. In particular, supporting AI-driven tool adoption in resource-poor schools is crucial to address educational inequities. This RAPID project addresses an urgent need to facilitate integration of AI technologies into schools to maximize benefits while reducing the burden on teachers’ time. Specifically, the goal of this project is to understand how instructional coaches can implement AI teacher feedback tools, leveraging the advantages of such tools (cost effectiveness, scalability, customizability, data-based and privacy) and mitigating technical and time barriers to adoption. The findings and products of this project will support professional learning organizations as well as district-based coaches and teachers interested in automated feedback, and has the potential to significantly increase the quality of instruction at various types of institutions.

The time-sensitive research will involve interviewing highly-skilled coaches to develop scaffolding resources by leveraging existing collaborations with two teacher professional learning programs. Working with coaches and teachers who serve grade 4-8 math classrooms with a large percentage of marginalized students, the project will design generalizable coaching cycles and conversational routines that take advantage of information from automated feedback, while designing for different coaching models, different coaching contexts, and teachers with varying aptitudes for technology. The study incorporates an interview phase, a design phase for coaching cycles and routines, and a pilot phase, with room for iteration and emphasis on dissemination of the findings. Overall, the study will provide insights into how AI-driven feedback can be integrated into teacher coaching, contributing to knowledge about the challenges and opportunities of implementing AI within existing instructional processes. Ultimately, this project will help uncover how AI can be harnessed to enhance teacher effectiveness and student learning in real-world educational settings in a scalable way. This proposal was received in response to the Dear Colleague Letter (DCL): Rapidly Accelerating Research on Artificial Intelligence in K-12 Education in Formal and Informal Settings (NSF 23-097) and funded by the Innovative Technology Experiences for Students and Teachers (ITEST) program, which supports projects that build understandings of practices, program elements, contexts and processes contributing to increasing students' knowledge and interest in science, technology, engineering, and mathematics (STEM) and information and communication technology (ICT) careers.